Eggshell Production and Assembly in Drosophila

During late oogenesis in Drosophila, ovarian follicle cells synthesize and secrete several proteins that assemble to form the vitelline membrane and chorion sublayers that comprise the eggshell. Dr. Waring's research is directed towards understanding the molecular mechanisms that underlie eggshell formation. She proposes to continue her studies on the dec-1 gene, an eggshell gene that is exceptional in terms of its size, mutability, production of alternatively spliced transcripts, and post- translational protein modifications. In addition, she will expand her studies to include other eggshell genes so that she can begin to establish functional interrelationships among the eggshell proteins. Studies are proposed in three areas. First, antibodies that have been raised against different regions of the dec-1 gene will be used to study proteolytic processing of the three dec-1 primary translation products and their derivatives. Second, product specific antibodies will be used to localize different eggshell proteins in assembling and mature eggshells. By comparing the distribution of different eggshell proteins in wild type and mutant eggshells, she hopes to gain insight into protein-protein interactions that are important in eggshell assembly. Third, by structural and functional comparisons of the dec-1 gene in evolutionarily distant species, she hopes to identify molecular features of the dec-1 gene that are essential for its function. Macromolecular assembly has been extensively studied in viruses and bacteriophage due to the ready availability of mutations that disrupt their assembly. The eggshell in Drosophila provides an opportunity to study a macromolecular assembly process in a genetically amenable eukaryotic organism.